Engineering Research Equipment Grant: Image Analysis Systemfor Geotechnical and Materials Engineering Research Labora- tories

This research equipment award will be used to purchase a fully automated image analysis system for use in studying geotechnical materials (soil and rock), as well as other civil engineering materials. The microstructures of these materials will be studied; for example pore structure, grain contacts, grain orientations and grain defects.